NSTARS:High-resolution spectroscopy of nearby stars

AST-0086321
Lambert, David
"NStars: High-resolution Spectroscopy of Nearby Stars"

Dr. Lambert is conducting a detailed study of absorption line asymmetries and wavelength shifts in the spectra of stars using realistic three-dimensional hydrodynamic simulations. He is working to quantify the effects of convective motions and the resulting surface irregularities on measurements of radial velocity, photocentric stability, chemical composition and other basic stellar parameter measurements so that the data on nearby stars can be corrected for these effects. Some of the ultra-high resolution spectra needed for this project are obtained at the University of Texas McDonald Observatory.
Funding for this project was provided by the NSF Stellar Astronomy & Astrophysics (AST/SAA) program through the joint NSF/NASA "Nearby Stars (NStars)" initiative, and the NSF Mathematical & Physical Sciences Directorate Office of Multidisciplinary Activities (MPS/OMA).
***